Noncooperative Beamforming for Ad hoc Networks

Current wireless data networks, such as 802.11b/g/a (Wi-Fi) which are
based on single antenna transmission are inefficient in terms of
the number of users (capacity) that can be supported in a given area.
It is well known that multiple antenna elements (arrays) can be combined with
beamforming and space-time coding to greatly enhance the capacity of
cellular networks. However, the use of antenna arrays to enhance
capacity in Ad hoc networks (i.e. when a base station is not available)
is not well understood. The development of new beamforming
and space-time coding techniques that exploit antenna arrays in Ad hoc
networks will greatly increase the number of users and data rates that
can be supported in future Wi-Fi and Wi-Max type applications, and
reduce dependence on cellular and optical backbone infrastructures.

This project specifically develops and analyzes a class of
distributed array processing algorithms for increasing Ad hoc wireless
network capacity based on iterative minimum mean-square error
(IMMSE) beamforming. In IMMSE, the transmit beamformer at each
node is set to the conjugate of the conventional MMSE receive beamformer
computed using a training sequence. IMMSE is then studied using
noncooperative game theory in order to obtain convergence and efficiency
results. The IMMSE algorithm is extended to space-time coding to
yield approximate solutions to maximizing decoupled Shannon
capacities of Ad hoc networks. These IMMSE-Deflation (IMMSE-D)
algorithms attempt to balance desired link capacity with a tax on
interference to other links, and hence may offer better network
throughput than greedy capacity-maximization algorithms. Overall
network throughput is evaluated by embedding the IMMSE and IMMSE-D
algorithms in a network simulation software package.